Collaborative Research: Late Pleistocene Induced Fluctuations in the California Current, a Paleoceanographic and Ocean Drilling Program Site Survey Study

9314512 Stott This award will support a marine geological and geophysical study of the California Current system and is a cooperative project between scientists at Boise State University and the University of Southern California. The main objectives of the project are to acquire an extensive base of seismic reflection data and a suite of large diameter piston cores and to use this new data to examine changes in the current system over the last glacial cycle. the results of the study will be correlated with similar work on land. Additionally, the data to be acquired will be used in planning drilling as part of the Ocean Drilling Program which will examine the long-term evolution of the California Current in response to changing Neogene climate conditions. The investigators on this study are highly qualified and the project will take advantage of close cooperation with a number of other groups engaged in studies of the California Current. ***